CARGO: Advanced Topological Methods for Robust Surface Intersection Algorithms and Trimmed Surface Representations

DMS-0138411
Rida T. Farouki

Though motivated by practical engineering considerations,
surface intersection problems have deep roots in diverse
areas of mathematics, including algebra, geometry, topology,
analysis, and numerical methods. The proposed project will
bring the diverse expertise and renewed commitment of an inter-disciplinary team of mathematicians, computer
scientists, and engineers to bear on this critical problem.
Since successful solutions will require radically new
approaches and paradigms, rather than incremental advances,
special emphasis will be placed on re-visiting the problem
from first principles, seeking new insights through
synergistic dialog among participants with diverse areas of
expertise, and use of exploratory software implementations
as research tools. A central theme of the proposed research
is the ab initio incorporation of topological information
into the formulation and verification of intersection algorithms. Although failure to guarantee topological consistency is
the main deficiency of existing algorithms, this remains a
poorly explored domain. Our initial line of enquiry will
focus on using the homotopy or "embedding" method to track
topological changes in implicitly-defined algebraic curves,
as they evolve from "simple" initial configurations into a
prescribed intersection locus.

The accuracy, efficiency, and reliability of modern
computer-aided design (CAD) systems has been severely
compromised by the persistent lack of rigorous algorithms
for topologically-consistent representations of surface
intersections and trimmed surfaces. The solution to this
fundamental problem can have tremendous economic impact,
in terms of eliminating the laborious "geometry preparation
and repair" task that currently precedes the use of CAD
data in analysis, manufacturing, and inspection applications,
and in resolving data-exchange incompatibilities among
different CAD systems. The ensuing productivity benefits,
manifested in accelerated design cycles and greater reliance
on "virtual prototyping" for design verification, are crucial
to the maintenance of technological leadership.